Regional Center for Ocean Sciences Educational Excellence [COSEE]--Gulf of Mexico

This award provides funding for a Regional Center for Ocean Sciences Education Excellence with administrative offices located at the University of Southern Mississippi's Marine Education Center and Aquarium in Biloxi, Ms. The proposal would establish satellite centers in Louisiana, and Alabama and expand existing USM teacher professional development efforts into these states. This Center would make extensive use of the expertise of regional marine educators as interpreters of ocean and coastal marine science research in professional development institutes for formal and informal educators. This center will be one of seven regional centers that represent the initiation of the COSEE network. The initial set of centers covers most of the East Coast, Florida, the Gulf Coast, and California. A central coordinating office for the seven centers will also be funded.